Recent Developments on the Properties of Emergent Layered 2D Quantum Magnetic Materials and Heterostructures

This proposal mainly seeks to partially support 18 undergraduate students, graduate students, post-docs, and under-represented, female, junior and retired faculty to attend and present at the symposium on Quantum and Topological materials at the Spring Materials Research Society (MRS) national meeting in Honolulu, Hawaii, May 8-13, 2022.